A Workshop Focused on the Use of Case Studies in Engineering Education

Engineering - Mechanical (56)

This special project is a three day workshop focused on the implementation of case study methodology in engineering education. The objectives of the workshop are for participants to: learn about the use of case study methodology in engineering courses, participate in real-world case studies where engineering decisions have a major impact, use multimedia materials to enhance learning, benefit from collaboration between engineering and business in solving real-world problems, use case studies to address the ABET EC2000 accreditation criteria. In addition, the workshop encourages participants to implement case study methodology at their institutions and points out various ways to support such efforts.